NSF/DARPA Workshop on Machine Learning and Vision

This award funds a research planning workshop on machine learning and computer vision, to be held in Harper's Ferry, West Virginia, on October 15-17, 1992. Research in some laboratories is beginning to make progress toward introduction of learning capabilities into computer vision systems. There is a growing interest in interaction between the learning and computer vision research communities. This workshop will provide a forum for leading researchers from both fields to come together to identify concepts and approaches in machine learning that have promise for application to vision, and to develop a research agenda to advance the use of learning in computer vision systems. A report summarizing the current state of the art and outlining research opportunities and priorities will be produced and widely distributed.